SBIR Phase I: A novel caregiver-centered mobile app and artificial intelligence (AI) coaching intervention for pediatric Attention Deficit Hyperactivity Disorder (ADHD)

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase I project is its potential to improve approaches addressing pediatric Attention Deficit/Hyperactivity Disorder (ADHD), a condition affecting 10 percent of all U.S. children. The primary challenge families face is accessing psychosocial treatment, a crucial component of comprehensive care. Many families cannot access these interventions due to various barriers including cost, time, and a shortage of mental health professionals. This project introduces a self-guided, family-focused ADHD treatment mobile application complemented by a virtual coach. By addressing caregiver stress, which plays a significant role in treatment outcomes, this innovation offers a scalable, affordable, and effective solution. This initiative aligns with the National Science Foundation's mission to promote scientific progress and support the well-being of the American public, especially during the current youth mental health crisis. The potential commercial and societal impacts of this project include enhancing scientific understanding of ADHD treatment, providing a competitive advantage in the digital health sector, and addressing a significant market opportunity in mental health care.

This Small Business Innovation Research (SBIR) Phase I project utilizes artificial intelligence (AI) and large language models (LLMS) to create a scalable, accessible, and robust caregiver-centered mobile treatment system for pediatric ADHD, complemented by a virtual coach. The innovative aspect lies in merging human-centered design with rules-based conversational AI and an empathetic chatbot, aiming for a lasting, scalable impact on caregivers of children with ADHD. The intent is to broaden access to evidence-based psychosocial interventions, improve adherence to these treatments, and achieve superior outcomes. ADHD, a condition that hinders self-regulation and executive function, affects a significant portion of U.S. children. Despite the known advantages of early intervention, many affected children do not receive optimal care. The project's objectives include the co-design of the app, which incorporates a multi-module psychosocial intervention and caregiver coping techniques; the development of the virtual coach's role with clinician guidance using AI; and a proof-of-concept test involving caregivers. The project will assess feasibility and acceptability, and gather preliminary data on potential improvements in caregiver and child wellbeing.